CISE Research Infrastructure: Infrastructure to Support Research on Mixed Wired/Wireless Information Systems

EIA-0080119
Towsley, Donald F.
University of Massachusetts

CISE Research Infrastructure: Infrastructure to Support Research on Mixed Wired/Wireless Information

The goal of this project is research and development of control strategies, and services required by application suites executing over mixed wired/wireless networks. The future of networking will introduce a setting where individuals and embedded processes will communicate among themselves and with multimedia information servers over a network made up of diverse network technologies, including ad-hoc and cell-based wireless, and wired segments. This network will seamlessly provide a diverse range of information-based services. This reflects a fundamental shift in the way users will compute and communicate in the future, moving from today's wire-based network where users are immobile and know where to obtain services to an environment in which users are mobile, may be connected through wireless, perhaps even in an ad-hoc manner, and request and receive services in a transparent manner.

The project will produce the fundamental advances required in the areas of coding and modulation, access protocols, routing, quality of service, operating systems (OS), database systems, security, and performance evaluation, that will be needed to produce this next generation network. These advances will occur as the result of an integrated, collaborative, and multidisciplinary effort spanning a wide range of disciplines in computer science and electrical engineering at the University of Massachusetts.